NSF-I/UCRC - Planning Grant Proposal for UCLA to join I/UCRC for Wireless Internet Center for Advanced Technology (WICAT)

An Industry/University Cooperative Research Centers planning meeting has been awarded to determine the feasibility of the University of California-Los Angeles joining the existing Wireless Internet Center for Advanced Technology. The research activities of the proposed UCLA research site will utilize the resources of the existing "Wireless Internet for the Mobile Enterprise". The main focus of the research will be on wireless application technologies for enterprise-class needs.